Investigation of Aqueous Biphasic Systems for the Selective Liquid/Liquid and Column Chromatographic Separation and Recovery of Metal Ions

CTS - 9522159 Robin Rogers University of Alabama, Tuscaloosa ABSTRACT The goal of the proposed research is to obtain a fundamental understanding of the factors that affect metal ion partitioning in aqueous biphasic systems (ABS). Thermodynamic parameters for metal ions in polymer/salt and polymer/polymer ABS will be used to predict partitioning values. The effects of polymer hydrophobicity on metal ion distribution will be studied using polyethylene glycol/polypropylene glycol copolymers. The investigation of temperature dependent ABS will focus on the differences in metal ion partitioning between polymer/salt and polymer/water systems. This will help to define the role of water-structuring agents in determining metal ion supported chromatographic ABS will be compared. The research may lead to an efficient separation process that will replace the use of toxic and hazardous organics for extracting metal ions. Applications include waste remediation, hydrometallurgy and processing of radiopharmaceuticals.